Purchase of a High-Energy Tandem Mass Spectrometer

This award from the Chemistry Research Instrumentation Program will aid in purchasing a state-of-the-art high energy, multi-sector, tandem mass spectrometer in the Department of Chemistry at the Emory University. The research studies to be performed include investigating structures of polyoxometalates and the chemistry of radical cations, structures of unusual peptides and peptides from enzymatic cleavages of proteins, structures of synthetic and unknown naturally-occuring sphingoid bases and related biomolecules (e.g., glycosphingolipids), and structures of synthetic lipids and host molecules. One investigator is investigating fundamental aspects of gas-phase ion chemistry and is developing methods in analytical mass spectrometry. Mass Spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic and organometallic molecules. The range of tandem-mass spectrometic analysis affords the chemist one of the most powerful tools available for the characterization of compounds. The acquisition of this capability in mass spectrometry is essential for the prosecution of frontier research in many fields of chemistry.